Production, Exchange, and Consumption in Household Contexts: Archaeological Investigations at an Uruk Town in Mesopotamia

In 1987, Dr. Susan Pollock conducted a first season of fieldwork at the Iraqi site of Abu Salabikh. Dated to the Uruk period, this mound site contains the remains of an early Mesopotamian town and documents the emergence of a state level of organization in this region. Using a combination of methods, the nature and distribution of materials across the site was determined and existing ceramic chronologies refined to provide tight temporal control. Because of the amount and variety of materials the site contains and the presence of buried domestic structures, further work is desirable, and funds provided by the National Science Foundation will permit an additional two field seasons of excavation and analysis. Dr. Pollock and her collaborators will continue their surface survey to determine lateral distribution of materials. Scraping - removal of enough overburden to expose structure outlines - will reveal the location of habitation areas and permit careful excavation of a series of individual structures. Analyses of ceramics and other remains, such as stone tools and seal impressions, will provide insight into daily family activities. It will also allow comparisons across different social groupings and, on this basis, a determination of socio-economic differentiation. This research is important for several reasons. It will provide a unique insight into how complex societies arise. Because Abu Salabikh is not deeply buried and dates to a limited time period, it provides an excellent opportunity to undertake the kind of social reconstruction which Dr. Pollock proposes. While archaeologists have hypothesized on the factors which led to the rise of states in the Near East, this has been done primarily on a grand socio-political scale and very few researchers have focussed their attentions on the family level. Thus, this project both corrects an imbalance and provides data of wide general interest. Because students are included in the project, it will also contribute to the training of future scientists. It should, in a small way, help to strengthen the developing scientific ties between the United States and Iraq.